The Contractile Vacuole Complex of Dictyostelium Discoideum: Role of 100-KD V-ATPase Subunit

9317286 Clarke It is proposed to clone and characterize the cDNA for the 100 kD vacuolar ATPase. Preliminary studies in the PI's laboratory resulted in the isolation from a Dictyostelium expression library of a 1.1 kb cDNA that encodes the epitope that is recognized by the anti-100 kD monoclonal antibody. The ORF of 326 amino acids encoded by this cDNA is 39% identical (77% similar) to the amino terminus of the 96 kD subunit of the rat coded vesicle/sinaptic vesicle V-ATPase. The complete cDNA for the 100 kD protein will be cloned, and its predicted amino acid sequence and protein structure will be compared to those of the homologous mammalian V-ATPase subunit. Secondly, gene targeting experiments will be used to explore the function of this protein. Dictyostelium cells will be transformed with vectors designed to disrupt the gene for the 100 kD protein through homologous recombination, or to reduce its mRNA levels through antisense mutagenesis. The resulting mutants will be characterized to determine whether or not proton pumps are correctly assembled and targeted, and whether the mutant cells are defect in their ability to cope with hypoosmotic stress. These studies will help to elucidate the role of a highly conserved and poorly understood subunit of V-ATPases. They may also reveal functions beyond osmoregulation that are carried out by the contractile vacuole complex. %%% Contractile vacuoles are osmoregulatory organelles found in freshwater amoebae and protozoa. The means by which they accumulate, sequester and expel water remains mysterious. They may also serve other functions such as regulation of intracellular ion levels, but this has not been demonstrated. The most distinctive feature of contractile vacuole membranes is their extremely high content of vacuolar type proton pumps , which are likely to play an essential role in water accumulation and other transport activities carried out by the contractile vacuoles. Monoclonal antibodies are available that recognize two subunits of the vacuolar proton pump (V-ATPase) in Dictyostelium. One of these subunits is an integral membrane protein of approximately 100 kD whose mammalian counterpart has been postulated to be responsible for the targeting of proton pumps to the correct endomembranes. The present project will employ molecular genetics to explore the role of this V-ATPase subunit in Dictyostelium. ***